Meteorological Controls on Aerosol Distributions in ACE-Asia

This project involves the investigation of meteorological factors controlling the outflow of aerosols from Southeastern Asia. The project has two components: 1) a historical analysis of meteorological data, visibility, and dust observations, and 2) operational support for the ACE-Asia intensive field campaign to be carried out during spring 2001. For the historical analysis, the structure, intensity, area of occurrence and interannual variability of meteorological systems, both cyclones and anticyclones will be documented using retrospective analyses of dynamical variables (i.e., meteorological fields obtained in a reanalysis) over a period of at least ten years. The research will include the surface and upper air fields, specifically including the larger-scale dynamical environment to which the surface systems relate and which control their development, motion and eventual decay. The spatial and temporal relationship of the occurrence of mineral dust to the parent meteorological system will be investigated.